Are Active Muscles Really Stretched During Locomotion?

This Research Initiation Award is to study how muscles stretch during locomotion. The study will make direct measurements on the muscle length during locomotion. Therefore, it will attempt to verify recent speculation that key muscles are sometimes forced to increase in length as compared to the popular conception that they only shorten.